Double Polarization Measurements with Real Photons and Measurement of Direct CP Violation

This proposal will provide support for one year for Dr. T. Kageya, a postdoctoral fellow working at the Laser Electron Gamma Source (LEGS) at Brookhaven National Laboratory. The LEGS collaboration will carry out measurements of photon elastic scattering and pi meson production from protons and neutrons, which will in turn provide tests of some key low-energy predictions, such as the Drell-Hearn-Gerasimov sum rule, as well as chiral perturbation theory.